CISE Research Instrumentation: System Support for Mobile and Embedded Workloads

EIA-9986024
Carla Ellis
Duke University

CISE Research Instrumentation: System Support for Mobile and Embedded Workloads

This proposal seeks funding to deploy a wireless infrastructure in the Computer Science Department at Duke University.

The requested infrastructure will be used as a testbed for our research. The individual research results will be combined to provide a coherent system for the deployment of mobile and embedded applications. A goal of this research is to evaluate the success of the individual system components by demonstrating the viability of the disaster recovery application, in effect approximating next generation environments using currently available technology. In addition to these research results, the requested infrastructure will aid the department's continuing efforts into education and outreach. The equipment will serve as the basis of a project-oriented course to develop applications and system support for the infrastructure and will also serve as the basis for summer internship projects in Duke's continuing outreach efforts to underrepresented groups.